Appropriate Testing of Expansive Cements

An alternative method of coping with situations in which conventional explosives cannot be used for rock blastings, is the use of highly expansive cements and mortars. This study will identify the appropriate method or methods of testing for the physical properties of expansive cements. The testings procedure selected will be used to measure the expansive stresses generated by some typical expansive cements.